A Garden of Complexity: Self-Organization in Nature

9453037 McLean The Exploratorium will develop a hands-on, interactive, traveling exhibit "Garden of Complexity: Self-Organization in Nature." "Using the metaphor of a garden (a universally appreciated symbol of beauty and contemplation)" and arguing "that the essence of science is to extract organized observations from the complexity of nature," this exhibit will allow visitors to observe some of the self-organizing systems in a quiet, contemplative environment. The exhibit will be about pattern and how the natural world emerges into states that are perceived as pattered or organized. Four sub-sets of this theme will be explored; organization into patterns; surface effects - rubbing and flow; rotation, circulation, vortices, and the granular state - a different state of matter. Both existing and new artworks/activities will be used in this exhibit. The new additions will be created by individuals in the Exploratorium's Artists-in-Residence program. Their creations are both aesthetically and educationally interesting. In addition, the exhibit developers will experiment with new techniques in exhibit interpretation and they will develop activities that provide linkages with formal education. The exhibit will be circulated by the Association of Science and Technology Centers to nine sites over a three year period. It is estimated that it will reach 2.5 million people.